Oceanographic Instrumentation

The Lamont-Doherty Geological Observatory of Columbia University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the research vessel EWING that the institution operates. A substantial part of the ship's operating schedule during 1990 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -150-kHz transducers for the Acoustic Doppler Current Profiler system for making precision measurements of subsurface circulation features, -a Cesium beam frequency standard to enhance precision navigation capabilities, especially in remote areas, and -components to complete fabrication of a modern, digital, 3-kilometer, 240-channel seismic streamer and electronics system for making detailed studies of seafloor features and sub-seafloor structure. Columbia University is providing cost sharing for acquiring this equipment. The instrumentation described above will increase the capability of the Institution to support NSF- sponsored research and engineering projects.